ENGINEERING RESEARCH EQUIPMENT: High-Performance Workstation Upgrade Beyond 100 Megaflops

ABSTRACT P. K. Yeung Georgia Institute of Technology CTS-9411690 The proposal is to upgrade an existing workstation rated at 30 Megaflops to beyond 100 Megaflops and also to increase storage and memory space. This equipment will be used in support of two research projects: Diffusion with reaction and heating effects and Lagrangian studies of turbulence and scalar transport. The first of these is funded by an existing NSF Research Initiation Grant. The work is being extended to included flows with exothermic reactions and fluids with variable density. The inclusion of these effects implies the need for more CPU speed and memory. The second project requires the tracking of many fluid particles and, hence, large data sets are used. This will be facilitated by the additional memory and disk space.